Compiling for Locality in Advanced Scientific Computations

With modern processor architectures, programs can achieve good
performance only if they possess sufficient data locality to exploit
on-chip caches. This research focuses on developing and evaluating
software support for improving locality for advanced scientific
applications for both sequential and parallel machines. The basic
premise is that both compile-time analyses and sophisticated run-time
systems are necessary. Run-time systems are needed because many
programs are not analyzable statically. Compiler support is crucial
both for inserting interfaces to the run-time system and for directly
applying program transformations where possible.

This proposal investigates locality optimizations needed for three
features found in advanced scientific applications (3D arrays,
irregular accesses, and pointers). It focuses on extending
locality optimizations to handle cache conflicts between multiple
data, deep memory hierarchies (multi-level caches and TLBs), hardware
and software prefetching, nonlinear memory layouts, parallel and
cluster architectures, and memory performance tools. Locality
optimizations will be applied to representative programs and
experimentally evaluated on advanced computer systems.

The results of this research should help improve the performance
of computationally intensive scientific applications. Because
of trends in computer architectures, lessons learned are also
likely to be useful for application domains such as image
processing and high-performance databases.